Proof complexity, computation, and algorithms

This project supports research by Buss and his graduate students on
computational complexity, proof complexity, algorithms, and
numerical methods. Buss investigates proof theory and proof
complexity, especially aspects that are closely connected to open
problems in computational complexity including the P versus NP
problem. The relevant proof systems include bounded arithmetics,
which are first-order theories tailored to have logical strength
related to feasible computability, and propositional proof systems,
which have rich connections to bounded arithmetic and circuit
complexity. Buss will work to establish lower bounds on proof
complexity based on complexity assumptions such as the existence of
provably secure cryptographic systems. He will work to prove new
independence results and separation results for weak proof systems.
He will investigate what kinds of computational content can be
extracted from proofs. Buss will investigate the proof complexity of
propositional systems such as Frege systems, cutting planes systems,
Nullstellensatz proof systems, counting axioms, the polynomial
calculus, and intuitionistic proof systems. Buss also works on
numerical and geometric algorithms arising from computer graphics.
He will work on simulation methods for rigid multibodies using
higher-order approximation methods over manifolds, on symplectic
algorithms and other energy-conserving algorithms for physical
simulations, and on collision response algorithms.

The project supports research by Buss and his students on problems
that le at the interface between mathematics and computer science,
as motivated by open questions concerning the fundamental limits of
computation. These open questions include the P versus NP problem,
the mathematical feasibility of secure cryptographic coding, and the
optimality of particular algorithms and circuits for solving
combinatorial problems. Busss addresses these questions by
investigating computational complexity and proof complexity. The
project studies questions about the tradeoffs between the strength
of a formal proof system and the size of optimal proofs. Good bounds
on proof complexity are closely related to upper and lower bounds on
the hardness of computation, as well as to the mathematical
underpinnings of cryptography. The project also supports Buss's
work on algorithms for simulation of dynamical systems